"The Cognitive Consequence of Disconfirming Self Information

The primary objective of the project is to develop a competitive research proposal on "The Cognitive Consequence of Disconfirming Self Imformation." Support of the project will assist a well trained Mexican American social psychologist to improve his research capability and to complete the planning and development of regular MRI proposal. The planning activities, if successful, will significantly enhance the potential of the investigator to compete for MRI and other research support.